Instrumentation for Improving Environmental Science Laboratory Instruction

Instrumentation for Improving Environmental Science Laboratory Instruction The primary purpose of this project is to improve the curricula in environmental science and microbiology laboratory instruction at the institution. Improvements center on six undergraduate laboratory courses that form the core of curricula for a new environmental science major and a microbiology major. Specific project equipment also allows for greater focus of laboratory time on concepts and hands-on use of modern instruments. It is expected that these project improvements will also make science more appealing, and more understandable for undergraduates.